Postdoctoral Research Fellowships in Chemistry

Dr. Pamela Chu has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Chu's doctoral degree was from the University of California at Berkeley under the supervision of Professor Yuan Lee. Dr. Chu intends to continue research at the National Institute of Standards and Technology under the sponsorship of Dr. Richard Cavanagh. Dr. Chu's area of postdoctoral research will be the photoexcitation and fragmentation/desorption mechanisms of metal carbonyls on metal and semiconductor substrates. Longer term, she plans to study laser-induced photochemistry at surfaces and surface-mediated reactions probed by two-photon photoemission. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.